High Spatial Resolution Cold and Thermal Neutron Imaging Sensor

The objective of this research is to investigate boron carbide diode-based sensors applied to high spatial
resolution neutron imagers. The approach is to experimentally and theoretically investigate the
operational parameters and spatial resolution enhancement techniques required for this purpose. The
four spatial resolution enhancement techniques to be investigated include threshold discrimination,
density gradient, fast logic, and columnar sensor medium techniques. Each of these enhancement
techniques will be investigated for feasibility and effectiveness. Boron carbide diode sensors will also be
characterized experimentally with respect to related operational parameters for these spatial resolution
enhancement techniques. The combination of these results will provide a basis for the development of a
state-of-the-art neutron imager. The boron carbide will also be tested through direct coupling with Timepix
QTPX-262k to test its functionality and improvement of current state of the art techniques utilizing
established front end electronics and signal processing methods.